Consumer Product Safety Regulation: Lessons from International Data

This is an ambitious proposal to investigate the impact of consumer product safety laws and regulation on household accident rates. Historically, industrialized countries have adopted a standard- setting approach to the problem of product safety. Previous research, however, has found little or not effect of these regulations. The failure to find significant effects may be due to limitations of available data or to aspects of the analyses used. These factors will be controlled in the proposed project. The primary objective of the study is to determine whether product safety standards have decreased morbidity and mortality rates in several industrialized countries (U.S., U.K., Japan, and the Netherlands). The research will improve on previous studies by (1) analyzing a broader and more complete set of data on accidents and (2) employing more powerful and flexible statistical methods. As a result, the project will generate results that could resolve disputes over the appropriate form of product safety regulations in the United States. Therefore, this project will be valuable both for producing useful data on product safety and for the policy implications of those data.